Sampled Data Stabilization and Tracking for Partial Differential Equations

0206951
Rebarber

This project will focus on developing techniques for sampled-data
feedback for infinite dimensional systems. A discrete time controller can
operator with only limited frequency response, and infinite dimensional
systems often have high frequency effects which cannot be ignored, so
there is not only interest in what can be done with sampled-data control
design, but also in its limitations. The following question is basic: can a
given continuous-time controller be replaced by a related sampled-data
controller, while maintaining the desired response of the closed-loop
system? Both idealized and generalized sample-and-hold will be
considered. Generalized hold can be used as a design parameter, and
generalized sampling can be used when the output is not sufficiently
smooth to accommodate point evaluations in time. The PI will
characterize as completely as possible those continuous-time feedback
systems which do not lose their closed-loop stability when a sampled data
scheme (with sufficiently small sampling time) is applied to the feedback,
and will determine whether the performance of the sampled-data system
can approximate the continuous time performance. The performance
measures considered are closed-loop growth rate and stability radius.
Tracking techniques for infinite dimensional systems will also be studied
and developed. Suppose a system has an external disturbance term which
is to be rejected, or an external reference term to be tracked. One common
approach to doing this is by a low-gain controller suggested by the internal
model principle. The effectiveness of such a controller for a wide class of
systems will be studied, as well as its sensitivity to frequency variations in
the external signal. Sampled-data versions of tracking controllers will also
be considered. These sampled-data and tracking results will be applied to
PDEs in more than one space variable, especially coupled PDE models
with at least one hyperbolic component. Due to the fact that these models
involve two different of PDEs, coupled via highly unbounded operators,
the analysis has features which are distinct from the analysis for
uncoupled systems. For this problem a central concern for output
feedback design is the analysis of the input-output map, i.e. the map from
the control to the observation.

Advances in digital technology have led to an emphasis on sampled-data
design in control engineering, but the development of sampled data
control for infinite-dimensional systems such as PDEs has been limited.
In many applications output data is available in discrete time rather than
continuous time, and a feedback controller for such a system should be
designed to take discrete data as its input, but act in continuous time.
Since there is already an enormous literature on continuous time
stabilization of PDEs, the project will involve the investigation of how to
modify continuous time controllers to obtain sampled data controllers,
while maintaining system performance. Also of interest are techniques for
designing effective sampled-data controllers without reference to
continuous time design. Another topic to be considered is the design of
active feedback control tracking external signals and rejecting noise. As an
application, these methods will be used to design a controller to reject
noise in a PDE model which describes the interaction between sound
waves in a cavity (for instance, an airplane cockpit) and the motion of a
flexible wall of the cavity. Suppose that there is an external noise source,
such as engine noise, which is to be rejected, and active feedback control
is to be applied to smart material actuators on the cavity walls. Then a
properly designed low-gain controller (either continuous time feedback or
sampled-data) will attenuate the sound pressure at and near finitely many
points of the cavity.